Formulation and Analysis of Deterministic Models of Predation Among Acarine Populations

Gardner
The investigator develops and analyzes models of persistent
behavior of locally self-annihilating populations of predatory
and herbivorous mites. The project is stimulated by Huffaker's
classic experiment, which provided the first demonstration of the
mediating role of spatial processes in certain ecological
interactions. Huffaker noted that synchronies in the phases of
population cycles of localized aggregates within host plants of
herbivorous mites and of the mites that preyed upon them
occasionally spread over an entire area, but that the synchrony
can be broken by demographic and environmental stochasticity. He
conjectured that the complementary regularizing mechanisms that
generate synchrony, and the complementary stochastic mechanisms
that generate asynchrony, together generate the complex waves and
patterns seen in these predator-prey interactions in nature.
Existing stochastic patch models have been formulated that
successfully simulate complex, and evidently chaotic,
spatio-temporal patterns that have typically accompanied
persistent dynamics. Accordingly, such models have difficulty in
providing reliable predictions of behavior due to the large
variance seen in replicate data sets. This substantially limits
their practical application to the biological control of crop
pests. In previous work, the investigator formulated a family of
deterministic models, including an idealized paradigm defining a
class of reaction-diffusion systems. He studies two general
issues relating to the analysis and practical applications of the
reaction-diffusion system and related models. First, he
investigates the presence of several distinct families of stable
waves and spatial patterns of these equations, their
instabilities and bifurcations, and the presence of exotic
wave-like patterns. By combined analytical and approximate
methods, he describes theoretical mechanisms by which such
unstable waves can form the organizing center of spatio-temporal
chaos, while in other regimes, complex but non-chaotic, stable
spatio-temporal patterns appear spontaneously. A second topic
concerns the derivation of the model, which is based on
experiment. This addresses the manner in which the
reaction-diffusion model simulates stochasticity through
postulated low-density thresholds in the growth rates. The
investigator studies hybrid numerical procedures addressing the
crucial issue of parameter estimation, which can be problematic
both for stochastic patch models and for the reaction-diffusion
model, but at opposite spatio-temporal scales. For example, the
low-density thresholds involve the micro-local dynamics of a
small number of individuals, whereas large-scale emigration over
large regions is difficult to measure in a laboratory. However,
simple stable waves may suggest one instance in which this may be
possible. The investigator examines this in numerical
simulations with patch models, which may form the basis for new
and simpler experimental designs that can detect such behavior.
Together, these two approaches present a unified picture of how
"dynamic stochasticity" driven by the presence of certain
unstable waves and spatio-temporal patterns is theoretically
linked to parameters of population change governing behavior at
the smallest micro-local scales, and thus the generation of
asynchrony through demographic and environmental stochasticity.
Plant-eating mites, and the mites that eat them in turn,
often show cycles of growth and decline in numbers that are
closely related. Sometimes the populations decline rapidly to
near-extinction levels. But in a classic experiment Huffaker and
colleagues showed that these strongly coupled cycles can be
moderated by small changes in demographic or geographic factors,
leading to a long-term survival of both species that shows itself
in patterns, in time and space, of the numbers of predator and
prey mites. Of course, when the prey mite is eating a valuable
crop, one wants both mite populations to go extinct. So issues of
how mite populations vary together are of considerable practical
importance in the biological control of crop pests. The economic
impact of phytophageous species is considerable, and although the
use of predatory mites as a biological control is widespread in
certain local agricultures, many agricultural enterprises rely on
chemical pest controls. Chemical controls provide a short-term
solution, but have many damaging long-term effects. However, the
risks and uncertainties of biological pest control are difficult
to quantify due to their complex and unpredictable patterns of
behavior. The investigator's numerical simulations indicate the
presence of many different kinds of chaos, some of which achieve
better levels of suppression of both herbivore populations and
crop damage. The project explores new theoretical and
computational tools that may find practical application in the
biological control of crop pests and, in other contexts, in
inoculative control of certain exotic species.